EMT/BSSE Programmable Self-Adaptation: A Bio-inspired Approach To Multi-agent Robotic Systems

Emerging computing technologies have made it possible to manufacture
large-scale embedded multi-agent systems, from vast sensor networks to
modular robots and smart materials. A key challenge is understanding
how to program such systems at the individual agent level in order to
achieve system-level behavior that is complex, fault-tolerant, and
adapts to the environment. One source of inspiration is multicellular
biological systems (tissues, organs, and simple organisms) that
achieve complex self-adaptation in changing environments through the
distributed cooperation and sensing of vast numbers of cells. Such
systems can provide novel bio-inspired principles for the design and
programming of multi-agent systems.

This research investigates new computational paradigms for programming
multi-agent robotic systems to achieve complex self-adaptation in
response to the environment. The two main thrusts are: (a) the
development of a global-to-local programming methodology for
describing complex global adaptation goals and automatically deriving
provably robust multi-agent control (b) the development of a
tissue-inspired modular robotic system that can demonstrate
self-adaptive structures. A key source of inspiration is the
decentralized control strategies that cells use to achieve
environment-responsive structures and functions, e.g. shape adaptation
in plants and vascular networks, and locomotion in simple animals. The
aim is to harness these bio-inspired principles to create multi-agent
robotic systems that replicate the adaptability and responsiveness of
living systems. This work has broad application, from robust control
in distributed sensor-actuator networks to the development of
self-adapting architectural structures and prosthetics. This research
significantly advances our understanding of how to design autonomous
multi-agent computing systems that can self-organize, self-repair, and
respond to the environment.